Oregon Institute of Technology/Industry/ Community College Partnership for Retraining the Workforce in Microelectronicsin Oregon

9414220 Yarbrough Oregon Institute of Technology/Industry/Community College Partnership for Retraining the Workforce in Microelectronics Manufacturing in Oregon Oregon Institute of Technology has teamed with Linn Benton Community College, Portland Community College, Mount Hood Community College, Chemekta Community College, Intel, Tektronix, Hewlett Packard, Fujitsu Microelectronics, Siltec Silicon, and OKI Semiconductor to retrain Oregon's displaced defense workforce for productive careers in microelectronics manufacturing. This innovative statewide program will help provide a path to both associates' and bachelors' degrees shaped by industrial needs. ***